Nanotechnology Occupational and Environmental Health & Safety Workshop, Cincinnati, Ohio, December 4-8, 2006

Genaidy 0617939 This award supports planning and organization of an International Workshop on Nano Technology. Occupational and Environmental Health and Safety. This program will be co-sponsored by NIOSH.

This workshop falls well in line with the combined NSF, EPA, NIOSH, and NIEHS solicitation
"Nanotechnology Research Grants Investigating Environmental and Human Health Effects of Manufactured Nanomaterials: a Joint Research Solicitation-EPA, NSF, NIOSH, NIEHS"